Computers in the Undergraduate Physics Laboratory

This project incorporates computers into the undergraduate physics and pre-engineering laboratories. Students use the computers for data acquisition as well as for analysis and presentation of the data. Experiments have been modified from those previously available for manual data acquisition to use the computer in the data acquisition process. A concentrated orientation to the software and the use of the computers for experimental work helps students to use the laboratory more effectively. The grantee provides funds for this project that are an equal match for the NSF award.